Efficient Numerical Methods for Viscous Incompressible Flows

The investigator develops a class of efficient and accurate numerical
methods for the unsteady viscous incompressible Navier-Stokes
equations (NSE) based a new unconstrained formulation of NSE with
fully dissipation in contrast to the traditional formulation where the
Stokes operator is dissipative only in the divergence free
fields. This class of NSE solver is unconditionally stable with
explicit treatment of both pressure and convection terms. Moreover, in
this class of finite element methods, there is no requirement of the
so called inf-sup condition. The cost of solving NSE is greatly
reduced to solving a standard heat equation and a standard Poisson
equation at each time step for general three dimensional fluid problems.
The simplicity of the method also enable the PI to develop a class of
numerical methods for complex fluids such as magneto-hydrodynamics,
liquid crystal polymers, geodynamo, climate modeling, and large eddy
turbulence simulations;

Computational Fluid Dynamics has grown from a mathematical curiosity
to become an essential tool in almost every branch of fluid dynamics,
from aerospace propulsion to weather prediction and has received
extensive attention throughout the international community since the
advent of the digital computer. The accuracy and efficiency of the
proposed schemes will allow us to simulate general three-dimensional
time-dependent flows with a reasonable turn-over time. It is expected
that the proposed fast algorithms will become an important tool for
many scientists and engineers in numerous scientific and industrial
applications of current interest.